Presidential Awards for Excellence in Science, Mathematics, and Engineering Mentoring

Women in Engineering Initiative (WIE), University of Washington
Suzanne Brainard
HRD-9814946
In 1989, WIE served 50 women; today it serves over 1,300 students a year on the University of Washington campus and over 3,000 students off campus
by providing mentoring activities aimed at increasing the number of women in science and engineering. Between 1990 and 1997, the WIE program has increased
retention rates among undergraduate women from 50% to 74%. WIE research on mentoring has also produced a nationally-disseminated cross-gender, cross-racial
curriculum for training mentors and mentees in science and engineering.